Paleoclimatic Significance of Laminated Lake Sediments From the Canadian High Arctic

This award will support detailed studies of contemporary climate, hydrology, limnology, and sedimentology in high arctic meromictic lakes in order to characterize the nature of modern sediment influx and deposition in relation to contemporary climate. These process studies will be conducted in coordination with recovering cores of laminated lake sediments from the meromictic lakes. The sediments will be studied to determine if the laminations represent annual increments and if they can be related to recent climatic conditions in the area. If so, longer sedimentary records will be used to reconstruct past climate in the region. Since there are few sources of paleoclimatic data with annual resolution from the high arctic, this study will evaluate the potential of using laminated lake sediments for high resolution paleoclimatic reconstruction.